Collaborative Research: Effects of interfacial viscosities on flow of lung surfactants

Hirsa, Amir H.
CBET-1064644

Broader Impact and Background: The liquid lining of normal lungs is covered by surfactants. The liquid lining is essential for oxygen intake and carbon dioxide output, however without these surface-tension-reducing materials, known as surfactants, breathing would be laborious if not impossible. Aside from reducing the surface tension to minimize the work of breathing, lung surfactants also vary the surface tensionduring the breathing cycle in order to protect the alveoli against collapse on exhalation and over-expansion upon inhalation. A lack of functioning surfactants leads to respiratory distress syndrome, a potentially fatal condition in both adults and premature infants. Replacement lung surfactant therapy has already made major inroads in reducing the mortality rate amongst pre-term infants, but further improve-
ments can benefit from a better understanding of the associated interfacial hydrodynamics. Present models of lung surfactant hydrodynamics neglect surface viscosities, which may make a significant contribution. There is a need to understand the role of surface viscosities in lung surfactants because at small scales, such as those of the liquid lining the alveoli, the relative effects of surface viscosities are comparable to that of surface tension. The movement of natural and artificial materials that reduce the surface tension of the liquid lining of lungs will be studied. Using advanced computer models and recently developed experimental techniques, the behavior of DPPC (dipalmitoyl phosphatidylcholine), the primary constituent of lung surfactant, will be examined. Various flow characteristics of DPPC-covered liquid layers, that have recently been revealed, will be examined in detail. The proposed project differs from previous studies in that it bridges the vast divide between the two extremes of (i) purely theoretical approaches that assume no intrinsic interfacial viscosities associated with lung surfactants and (ii) purely empirical approaches that use ad hoc equations to explain experimentally observed responses of lung surfactants. Presently, the vast majority of lung surfactant research falls into one or the other of these two camps. The former lack the ability to explain many aspects of how real lung surfactants behave and the latter lack the ability to predict how a given surfactant will respond to a different set of flow conditions.

Improvements in measurement and modeling of interfacial viscosities in model surfactant systems, such as DPPC, may help one to understand better the functioning of natural lung surfactants. The capabilities developed can be subsequently used for multi-component lung surfactant systems. Ultimately, the results of this project may help speed up the development of more effective therapies. The multidisciplinary team (from mechanical engineering and mathematics), with its proven track record of productive collaboration, will provide an excellent opportunity to educate graduate and undergraduate students in interfacial hydrodynamics.

Intellectual Merit. The project will develop a synergistic capability incorporating experiments and computations to account for the leading order interfacial viscoelastic hydrodynamics associated with DPPC, delineating its various flow regimes. By far, the phospholipid DPPC is the most prevalent component of lung surfactants, constituting 55{60% of lung surfactant by mass. This highly amphiphilic molecule has a hydrophilic polar head and twin hydrophobic tails, making it essentially insoluble in water. Its equilibrium interfacial properties will be measured and incorporated into a predictive model taking into account surface deformation, interfacial acceleration and spatio-temporal surface sur-factant concentration. The model will be tested directly against experiments for a canonical flow with large time-dependent changes in the interfacial area, and then used to predict the dynamics at scales too small for experimental measurements. This will provide a much-needed improved understanding and modeling of the intrinsic interfacial properties, including the elastic effects due to surface tension gradients, surface shear and dilatational viscosities, and the viscous coupling between the interfacial and bulk flows.